Support to Intergovernmental Oceanographic Commission of UNESCO for Global Ocean Observing System Activities

9906108
Cole

Funds are being transferred to the Office of the Chief Scientist at NOAA to cost-share certain activities associated with the development of a Global Ocean Observing System (GOOS).
Oceanographers have long recognized the value of an ongoing operational observing system that would provide fundamental measurements to meet the observational needs of many user communities. Over the past several years, several international organizations have worked together to initiate plans for such an observational system. Agreements have been reached by several governmental organizations to jointly sponsor a GOOS program. A fully implemented GOOS will satisfy ocean observing requirements for climate monitoring, assessment and prediction, for monitoring and assessment of marine living resources, and of the health of the ocean, for monitoring the coastal zone environment and its changes, and for meteorological and oceanographic operational services.